Invariants of 3-Manifolds and Their Applications

DMS-0206464
Walter Neuman

Part of this project concerns a continuation of the investigator's
successful application of topological methods to the study of
singularities of complex surfaces and the topology of plane affine
curves. One issue to be addressed is explicit analytic description of
singularities with given topology. The general question is notoriously
difficult, but the investigator and J. Wahl have identified a
remarkably broad class of topologies where significant advance can be
made. Another issue is the study of the global topology of
two-variable polynomials, as well as classification issues, which are
both of intrinsic interest and also have potential to contribute
to the resolution of the famous Jacobian Conjecture. A significant
tool in this work are the splice diagrams of Eisenbud and the
investigator and a recent generalization of them. In a rather
different direction, the investigator will study invariants of
3-dimensional manifolds that relate to number theory and algebra,
namely the so-called character and eigenvalue varieties and the Bloch
invariant. Connections are emerging between these invariants that will
inform both topology and algebra/number theory.

Algebraic Geometry, which is essentially the study of the zero sets of
families of polynomials, has always been an important area of
fundamental research, and is also important in such diverse
applications as control theory and communications. Such zero-sets
arise, for instance, as the parameter spaces of processes and the
control spaces of automata. The singularities (places where the nature
of the topology changes), are of fundamental significance. This
project has two thrusts: to understand better the link between the
analytic description and the topology of singularities, and to
investigate invariants of low dimensional manifolds that link topology
with other fields.